Light and Mind: A Planning Grant

Independent Communications Associates will develop a five-part television public television series on light, optics, and perception, entitled "Light and Mind." The series explores both the outer, physical world of light and optics and the inner world of the mind that processes visual information. The programs examine the history of the subject as well as the frontiers of current research. The project is designed to be accessible to a wide range of audiences: the series is planned as a PBS primetime special aimed at adults while the ancillary educational materials are targeted to high-school students. During the first phase of planning the producers will work with their advisors, research and write a fuller treatment of the five episodes and a full script for the first program, create a budget, and develop an educational strategy and outline of the educational materials.